Teaching and Learning of Chemistry Using LabWorksII in the Studio Paradigm

Chemistry (12) New methodologies are sought in order to improve student learning in science, mathematics, engineering and technology (SMET). As a result of previous NSF initiatives, numerous teaching and learning models have been developed and await widespread implementation. One model, the use of LabWorksII developed at the Air Force Academy, was a result of NSF initiatives. Our goal is the adaptation and full implementation of the use of LabWorksII in the chemistry courses allied-health chemistry, general chemistry, and analytical chemistry. We are integrating the use of LabWorksII interface units into the laboratories, developing courses, implementing on-going assessment measures, and disseminating results from the project. The expected outcome of this project is to increase student learning, satisfaction, retention, and enthusiasm for science, creating a better trained and more knowledgeable student who is more likely to pursue a career in the sciences.